Postdoctoral Research Fellowship in Plant Biology

This award funds a postdoctoral research fellowship in plant biology for two years. The project entitled "Characterization of GT-1, a plant nuclear factor which mediates light responsive regulation" is to be carried out in the laboratory of Dr. Nam-Hai Chua at Rockefeller University. The applicant received her Ph.D. training in the area of prokaryotic molecular biology. In her postdoctoral training, she completely switches her field to plant molecular biology and focuses on the molecular mechanisms of light regulation of gene expression in tobacco and Arabidopsis. The Postdoctoral Fellowships in Plant Biology are designed to increase the number of outstanding young investigators in plant biology.